Advances in Immunology and Immunogenetics: Development and Distribution of an Instructional Monograph For High School Teachers and Students

Over the past decade, there have been significant advances in our understanding of how the human immune system functions. Advances in molecular genetics have led to a deeper understanding of the genetic control of immune response, and are currently leading to an expansion of our knowledge of the relationship between genes and certain human cancers. But knowledge of these conceptual advances in biology and of the health-related applications has not yet filtered into the high school curriculum. In this project, the Biological Sciences Curriculum Study, in conjunction with the Foundation for Blood Research, will develop, field test, and distribute an instructional monograph on advances in immunology and immunogenetics for use by high school teachers and students. The first half of the monograph will be devoted to an update for teachers and to suggestions for introducing immunology content into the existing secondary school biology curriculum. The second half will be devoted to classroom activities. The monograph will be distributed by the National Association of Biology Teachers to its 6000 members and by the National Center for Education in Maternal and Child Health to others on a per-request basis.